Workshop: New Approaches to the Family Talent Pool in Academic Chemistry

Rachel Smith of Oak Ridge Associated Universities is supported by the NSF Chemistry Division's Special Projects Office to provide travel and subsistence costs to participants of the January 2006 workshop on "New Approaches to the Female Talent Pool in Academic Chemistry." The workshop will (1) discuss and document the shortage of women in academic chemistry and the need for more women on chemistry faculties; (2) enable sharing among participants of proven means for attracting women into academic chemistry careers; and (3) explore new ways to draw women to chemistry faculties at major research institutions in the U.S. This award provides participant support costs and is complementary to the workshop planning grant CHE-0544616.

Chemistry departments continue to have low numbers of female faculty members despite considerable increases in recent undergraduate and doctorate chemistry degrees to women (currently about 50% and 33 %, respectively). The workshop will present evidence that research and teaching are improved when academic chemistry faculties come from a larger and more diverse talent pool. The workshop is viewed as having potentially broad impact not only within chemistry, but other disciplines as well.